ACT/SGER: Atomic Layer Deposition of Nitrides on Nano-Particles for Enhanced Energy Conversion to Combat Terrorism

William J. DeSisto, University of Maine, will apply atomic layer deposition reactions to passivate nanoparticles. These coated nanoparticles will be used in next-generation, high energy density, compact energy storage devices. Initial experiments will focus on coating nano-sized lithium-ion battery anodes with titanium nitride. Miniaturized batteries using these anodes will be fabricated and evaluated by industrial collaborators at Yardley/Lithion Technical Products.

This award is supported jointly by the NSF Directorate for Mathematical and Physical Sciences and the Intelligence Community. The Approaches to Combat Terrorism Program supports new concepts in basic research and workforce development with the potential to contribute to national security. The coated nanoparticle technology may lead to smaller and more stable batteries that will be used in many specialty applications. Students will be engaged in the research in both academic and industrial settings.